CAREER: New Technologies for Querying Pathway Databases

Unlike most bioinformatics data, such as DNA sequences and protein
structures, pathways show the interactions of different bio-chemical
entities. Thus, each entity or subpathway can have a function in its
pathway that the pathway can not realize without it. Formulating these
functions presents exciting computational challenges.

This proposal develops algorithms for efficient and accurate
computational analysis of pathways. The first step in achieving this
goal is to build a mathematical model for functions of pathways and
subpathways. This proposal defines the function of a subpathway as its
contribution to the steady state of the entire pathway. Computing this
contribution is a difficult problem especially for gene regulatory
pathways. Existing methods can compute this for metabolic pathways,
but they do not scale to even medium sized gene regulatory
pathways. This proposal develops efficient methods for computing
function.

Finding the subpathway that has a desired function is a challenging
problem. There is no clear way of searching for subpathways with
desired functions using existing tools. This proposal develops
efficient algorithms for searching subpathways with desired function.
This proposal takes this one step further, and develops mathematically
sound algorithms for comparing two pathways so that the entities that
map are functionally, homologically and topologically similar. This
proposal also explores feature and reference-based index structures
for biological pathway databases.

Further information on the project can be found at the project web
page:
http://bioinformatics.cise.ufl.edu/